Collaborative Research: The Fortress and the Grassroots: Archaeological Investigations of Early Complex Societies on the Tsaghkahovit Plain, Armenia

Funding from the National Science Foundation will underwrite two years of archaeological research by Drs. Adam T. Smith (University of Chicago), Ian Lindsay (Purdue University), and Lori Khatchadourian (Cornell University) into the rise of the earliest complex sociopolitical regimes in southern Caucasia during the Late Bronze Age (ca. 1500-1150 BC). The co-PIs will join their long-time collaborator, Dr. Ruben Badalyan (Armenian Institute of Archaeology and Ethnography), and an interdisciplinary team of specialists in faunal and floral analysis, archaeometallurgy, and geochemistry to investigate regionally distinctive approaches to political authority through two seasons of excavations at the fortress sites of Gegharot and Tsaghkahovit in central Armenia. Traditional models of the rise of political complexity, built around archetypal centers such as Mesopotamia and the Maya lowlands, typically describe the origins of archaic states as the result of a gradual coalescence of settled agricultural communities, the surpluses from which fueled emerging political economies. In southern Caucasia, our research to date has revealed a different course of political coalescence during the mid-2nd millennium BC, when complex polities emerged not from settled farming villages but from nomadic, hierarchical pastoral groups.

Prior excavations at the fortresses of Gegharot and Tsaghkahovit have uncovered tantalizing evidence of emergent political formation manifested in architecturally discrete areas for elite institutions. Most intriguingly, cultic buildings at Gegharot, complete with altar and ritual equipment (such as censors), revealed evidence of storage and metalworking, suggesting well-integrated political, economic, and ritual institutions. At the other end of the social spectrum, test excavations and a pilot magnetometry survey at the base of the Tsaghkahovit fortress have provided the first documented accounts of a Late Bronze Age residential complex; significantly, however, the informality of the domestic architecture, combined with relatively thin, single-floor occupation layers, hints that the settlement may not have been as enduring as the fortresses that oversaw them, possibly a result of seasonal occupation by transhumant pastoralists. Our research seeks to understand the internal factors through which solidarity was maintained as sedentary political institutions faced the prospect of legitimizing their right to rule over subject populations seeking to maintain their historical legacy of mobility. Through continued detailed excavations and geophysical survey, our goal is to develop a detailed model of the practices that bound the region into a coherent socio-political order by charting the formation, operation, and ultimate collapse of Late Bronze Age regimes at the intersection of the fortress and the grassroots.

The resulting data will impact broader debates that center on the formation of complex socio-political regimes, the constitution of subject communities, and the inter-digitation of settled institutions and nomadic pastoralists. The project will also train American and Armenian graduate students in advanced archaeological data collection, recording, sampling, and remote sensing techniques. Materials from the proposed excavations will provide the foundation for exhibits planned for the Yerevan Museum in 2012 and the Oriental Institute (Chicago) in 2013. Project staff will also continue to offer periodic lectures on its activities in the local schools of the Tsaghkahovit plain.